Molecular Structures in Oriented Fibers

Dr. Millane will continue to explore and extend x-ray analysis of oriented fibers as a means of obtaining atomic details of molecular structures and molecular interactions. Thereby it is hoped that a better understanding will be developed of how many biologically and industrially important polymers achieve their useful properties. He has already developed and made extensive use of linked-atom least-squares technology to augment sparse diffraction data with stereochemical information. He plans to continue to improve the quality and reproducibility of the x-ray intensity data using objective algorithms, particularly profile fitting. Theory and algorithms for calculating diffracted intensities from disordered specimens, use of intensity statistics, and use of molecular graphics will be explored. Efforts to improve fiber diffraction technology will be both motivated and disciplined by being coupled to analyses of biologically significant and industrially useful polymers including xanthan and its variants, DNAs, xyloglucans and "Kevlar", and studies of synergistic interactions between polysaccharides.